CPS: Medium: Learning for Control of Synthetic and Cyborg Insects in Uncertain Dynamic Environments

The objective of this research is to enable operation of synthetic and
cyborg insects in complicated environments, such as outdoors or in a
collapsed building. As the mobile platforms and environment have
significant uncertainty, learning and adaptation capabilities are
critical. The approach consists of three main thrusts to enable the
desired learning and adaptation: (i) Development of algorithms to
efficiently learn optimal control policies and dynamics models through
sharing the learning and adaptation between various instantiations of
platforms and environments. (ii) Creation of control learning
algorithms which can be run on low-cost, low-power mobile platforms.
(iii) Development of algorithms for online improvement of policy
performance in a minimal number of real-world trials.

The proposed research will advance learning and adaptation
capabilities of practical cyberphysical systems. The proposed
approach will be generally applicable and lead to a new class of
learning and adapting systems that are able to leverage shared
properties between multiple tasks to significantly speed up
learning and adaptation.

Success in this research project will bring society closer to solving
the grand challenge of teams of mobile, disposable, search and rescue
robots which can robustly locomote through uncertain and novel
environments, finding survivors in disaster situations, while removing
risk from rescuers. This project will provide interdisciplinary
training through research and classwork for undergraduate and graduate
students in creating systems which intimately couple the cyber and
physical aspects in robotic and living mobile platforms. Through the
SUPERB summer program, under-represented students in engineering will
experience research in learning and robotics.